Time and Generation in African Land Use: Workshop

This project involves a workshop of scholars expert in studying African agricultural history and ethnography. The scholars will meet over three days to exchange information and develop research strategies to advance the study of how agriculture changes over time, specifically in land use as assessed by remote sensing, and the role of generational change among farmers themselves in this process.
Broader impacts: The new knowledge to be created about the nature of African food production will be valuable to agricultural and environmental policy makers and planners as well as to other scholars of the topic.